Workshop on Source Term Estimation (STE) Methods for Estimating the Atmospheric Radiation Release From the Fukushima Daiichi Nuclear Power Plant

This award will support a bilateral international workshop between U.S. and Japanese scientists. The workshop is being driven by the Fukushima nuclear power plant accident that was caused by the massive earthquake and subsequent Tsunami. The primary focus of the workshop is to bring together researchers in both the U.S. and Japan to define the research needed to better understand how to ascertain the quantity of released radioactive material. This is a problem that requires fundamental scientific understanding of a variety of physical processes and it also has substantial practical value for not only the Fukushima incident, but for any that may occur in the future.